Collaborative Research: Minimal Surfaces and Hypersurfaces in the round spheres and related problems

Differential Geometry studies general types of spaces where sophisticated calculus can be performed, having many direct applications in engineering, physics, and other areas. Minimal surfaces play a prominent role in Differential Geometry, combining a relatively simple and natural definition, with an essential role in understanding more complicated objects and questions. Their study forms a large part of modern Differential Geometry, and understanding their existence in an ambient space and related classification questions is of fundamental importance. This can be done either in a general geometric setting but even in special cases, as for example in Euclidean spaces or round spheres, such study has wide interest and deep applications.

The Principle Investigators will continue to work on the determination of the index and nullity of minimal surface doublings in the round three-sphere and free boundary minimal (FBM) surface doublings in the unit three-ball, with a view of expanding their investigation to characterizations of low index such surfaces of any topological type by their index according to conjectures they have proposed, and to mathematical applications of such results. They also plan to develop new general minimal surface stacking and doubling constructions, generalizing earlier doubling constructions, and new minimal hypersurface doubling constructions, partially in combination with equivariant geometry methods, to answer questions of Yau for minimal hypersurfaces, of any dimension greater of equal than three, in round spheres and Euclidean spaces. A final goal is to develop new gluing constructions for FBM surfaces close to the boundary in general convex domains.